Biomedical Innovations Using Implementation-Aware Agile Sensing and Signal Processing

Title: Biomedical Innovations Using Implementation-Aware
Agile Sensing and Signal Processing
Abstract:
Medical condition diagnosis is heavily based on sensor measurements
and their processing. These measurements correspond to waveforms
that propagate over the complex body environment and are transformed
linearly or nonlinearly according to the characteristic environment properties.
However, the medical community does not fully exploit the potentials of
advanced processing matched to nonlinear structures or modern sensor
technologies such as waveform agility that leads to significant estimation
performance improvements. This research exploits advanced
implementation-aware sensing and processing techniques to improve
medical diagnosis by: (a) efficient processing using compressed sensing
and nonlinear time-varying spectral methods; (b) estimation of environment
descriptors and disease state parameters combined with waveform-agile
sensing; and (c) mapping estimation and waveform-agile sensing algorithms
onto field-programmable gate arrays. This framework brings revolutionary
advances in diagnosing, treating, and tracking disease states that are
otherwise difficult to obtain as advanced processing techniques are either
not available or too costly. The investigators also design on-line software
toolboxes with sensing experiments for use in outreach programs to recruit
and retain freshmen and underrepresented student populations.

The research integrates advanced signal processing, stochastic Bayesian
estimation, and waveform-agile sensing with implementation-aware
algorithms to improve estimation of disease states. The investigators study
time-frequency techniques matched to nonlinear structures to process biomedical
data. Compressive sensing methodologies are developed that reduce the
number of required measurements and allow for alternative computational
algorithms. Mathematical descriptors are designed to model disease states using
time-varying transfer functions. Sequential Bayesian techniques and waveform
adaptation are used to estimate information. Algorithm reconstruction procedures
are developed that trade high performance for reduced implementation cost.
Finally, the investigators design algorithms cognizant of complexity and memory requirements.